Louis Stokes Colorado Alliance for Minority Participation: A Senior Alliance for Broadening Participation in STEM

Colorado State University (CSU), the lead institution, in collaboration with fourteen institutional
partners constitutes the CO-AMP consortium. The Consortium is proposing a strategic and
comprehensive effort to address the following goals in connection with underrepresented minorities,
women of color, and persons with disabilities successfully completing baccalaureate degrees in Science,
Technology, Engineering, and Mathematics (STEM):
1) Continue to increase bachelor degree completion in STEM disciplines;
2) Improve retention and transfer rates from 2-year to 4-year institutions;
3) Enhance partnerships with Hispanic Serving Institutions (HSI) in Colorado;
4) Strengthen graduate school preparation;
5) Promote international research experiences to enhance global diversity and understanding.
Since its inception, efforts of the CO-AMP Consortium have extended from the pre-freshmen
level to enrollment in graduate school programs. The Consortium has been a major driving force at
partner institutions to encourage and motivate students to excel and graduate with a bachelor’s. degree in
STEM fields. The enrollment and visibility of diverse students has also increased, demonstrated by the
recent 84% increase in LS CO-AMP enrollment. A significant level of support, in addition to that from
the NSF, has been provided by central administrations, Departments and Colleges of the Consortium,
and industry partners. Most importantly, the Consortium faculty and staff have provided individualized
student support without which the activities would not have been as successful.
Most, if not all, of the proposed initiatives in goals 1 through 5 have been and will continue to be
institutionalized at partner institutions. Early integration of minority students into college life must start in
the admissions office with early faculty advising and mentoring linked to the process. Proposed math skill
building and science course assistance will be continued and further expanded. Student academic
advancement will also be enhanced by participation in NAPIRE and other international research
experiences, contributing to global diversity and understanding. In addition, further establishment of
professional societies at 2-year and 4-year colleges is critical to increasing science identity and
integration into the professional community. This collaboration of national resources, resulting from these
diverse programs, is essential to assure benefits to underrepresented minorities, women of color, and
person with disabilities; and will be sustained as an essential structure continuing after funding from the
NSF is no longer available.
Intellectual Merit
Innovative programs based on the Tinto Model and research results from the Higher Education
Research Institute (HERI) will target improved academic and social integration of students into college life
and promote students’ self-identity as scientists. CO-AMP will integrate math assistance and curricula
between 2-year and 4-year institutions. Pipelines between high school, 2-year/4-year colleges, and
graduate school will be integrated by faculty mentoring into the admissions process, establishing
professional societies on campuses, and building bridges through innovative summer workshops,
research at 2-year and 4-year campuses, and international research experiences. Evaluation efforts will
provide evidence-based methodologies for improving student retention. CO-AMP has a history of qualified staff, as well as the facilities, networks, and partnerships in place to focus on
building a stronger infrastructure that will continue to build capacity and compatibility in the Consortium.
Broader Impacts
The programs and activities CO-AMP will undertake cover the core areas of recruitment and
retention, including training of faculty, promotion of proven programs, support from industry involvement,
as well as conducting research to determine best practice in preparing students for higher levels of math
and science. CO-AMP is partnered with all of the Hispanic Serving Institutions in Colorado and Fort
Lewis (one of only three Native American-Serving Non-Tribal Colleges in the US) making it optimally
positioned to serve the greatest number of Hispanic and Native American students. Results of research
conducted will be presented at conferences and published to further knowledge in this important area of
diversity education. The results will reduce educational disparities and improve scientific knowledge in
minority/tribal communities, as trained minority scientists act as role models and educators.